International Research Experience for Students (IRES) in Nano-bioengineering with Johns Hopkins University and The Inter-university MicroElectronics Centre (IMEC) in Belgium

OISE-0825132
Searson

A high quality international research experience is a key component in training multidisciplinary scientists and engineers for the global economy. This International Research Experience for Students (IRES) program teams Johns Hopkins University (JHU) with the Inter-university MicroElectronics Centre (IMEC) in Belgium. JHU undergraduate and graduate students will have the opportunity to work at IMEC’s world class microfabrication facilities. A central feature of this IRES program is the focus on multidisciplinary, collaborative nano-bio research projects involving JHU and IMEC researchers.